Analysis and Synthesis of Interacting Dynamic Systems Using Scattering Formulations

9410654 Longoria In this project,innovative techniques are developed for modeling, analysis and synthesis of systems and processes using scattering variables. The scattering approach can represent dynamic phenomena described by variables that take on values which can be continuous or discrete in amplitude and/or time. In engineering, scattering techniques are most prevalent in microwave circuit design and classical network theory. This existing knowledge is extended to include multi-energy domain devices and processes in the context of mechanical engineering systems. In particular, the scattering technique is used to facilitate the analysis of systems with interacting lumped and distributed parameter elements. Additionally, the scattering approach is developed for dynamic modeling and analysis of discrete flow processes. ***